CMS Detector R&D

Research funded by this grant will support the detector development activities of several university groups. These groups are part of a large collaborative effort involving physicists from many countries to build the Compact Muon Solenoid (CMS) detector. This detector will analyze the collisions of high energy beams produced by the Large Hadron Collider (LHC). The ultimate goal of this experiment is to better our understanding of the structure of matter and of the basic forces of nature.